ChemMatCARS: A Synchrotron Resource for Chemistry and Materials Research at the Advanced Photon Source

This project, supported in the Directorate for Mathematical and Physical Sciences by the Divisions of Chemistry and Materials Research and by the Office of Multidisciplinary Activities, and co-supported by the U.S. Department of Energy Office of Basic Energy Sciences, enables the Consortium for Advanced Radiation Sources (CARS) to design, build, and operate an allocated sector dedicated primarily to structural and condensed matter chemistry and materials research at the Advanced Photon Source (APS) synchrotron X-ray facility. During the tenure of this forty- eight month continuing grant, Drs. Stuart Rice and James Viccaro of the University of Chicago, Benjamin Chu of the State University of New York at Stony Brook, Philip Coppens of the State University of New York at Buffalo, Peter Pershan of Harvard University, and Mark Schlossman of the University of Illinois at Chicago will lead a team of experts to instrument the insertion device beamline at Sector 18 at the APS that will enable research in three areas: (1) surface and interfacial properties in soft condensed matter, molecular liquids, and liquid metals; (2) static and time-dependent interfacial and bulk properties of novel polymers and composites, including properties of supramolecular and mesoscopic structures; and (3) chemical crystallography, with emphasis on anomalous scattering, time resolution, and high spatial and energy dispersion. In this project, it is intended that the sector to be developed will serve as the primary access to the APS for scientists who comprise the ChemMatCARS group of investigators within CARS, and that there will also be made available 25% of beamtime to scientists in the chemistry and materials research communities whose research activities would benefit from this facility.